REU Site: Consortium for Undergraduate Research Experience (CURE)

Proposal ID: AST 0139675
PI: Gillam, Stephen

Dr. Gillam is awarded funds at California State University-Los Angeles (CSLA) to continue a Research Experiences for Undergraduates site. Ten students annually will be recruited through CURE, the Consortium for Undergraduate Research Experience, which consists of CSLA, Pasadena City College, Los Angeles City College, Los Angeles Southwest College, East Los Angeles College, and the Jet Propulsion Laboratory (JPL). The goal of the program is to recruit, train, and retain underrepresented minorities in science and engineering. Participating students will work on research projects with mentors from CSLA and JPL; most of the students will observe at JPL's Table Mountain Observatory. The projects available range from astrometry of asteroids to planetary observations to ages of globular clusters. The students will also participate in field trips and training classes.